A Proposal to Establish the Charles Minor Engineering Fellowship Program

Virginia Polytechnic Institute and State University is establishing the Charles Minor Engineering Fellowship Program to encourage women, minorities, and persons with disabilities to pursue a Ph.D. in engineering. Nine departments within the College of Engineering will compete internally for Charles Minor Engineering Fellowships. The project director of the Fellowship Program is Dean of the College of Engineering. An advisory committee and a selection committee will assist him. Once named a fellow, each student will be assigned a mentor, and fellows will be assured of support throughout their academic career. An aggressive ten-step recruitment plan for potential applicants has been developed. Two important initiatives include (1) locating Tech alumni and (2) approaching corporations and federal agencies that employ large numbers of engineers.